Explaining Low Fertility in Postindustrial Societies

SES-1123885
Mary C. Brinton
Harvard University

Abstract
Explaining Low Fertility in Postindustrial Societies

Very low fertility rates have come to characterize a broad range of postindustrial societies from Europe to East Asia, with the average number of children per woman dropping to as low as 1.2 in a number of countries. This comparative project addresses the question of why some societies have experienced such a dramatic drop in fertility while others have maintained fertility rates around 2.0, much closer to the level necessary for the population to naturally replace itself.

Rates far below the level of population replacement portend a range of future problems for the societies experiencing them. These problems include a shortage of prime-age workers, slower economic growth, and increasing government expenditures to support an expanding elderly population. In response to very low fertility rates, many governments have developed workplace policies to facilitate work-family balance, especially for women. But in many countries including those in East Asia, these policies have done little to raise fertility. The public policy importance of what demographers have come to call "lowest-low fertility" calls for a concerted effort to understand the social, economic, and cultural forces that have led to steep fertility declines in the postindustrial world.

This project posits that in societies with rigid cultural definitions of family and gender roles, large numbers of young men and women delay marriage and childbearing when economic conditions are depressed. This occurs because young men are unable to fulfill the normative expectations of being the family breadwinner. Delayed marriage and childbearing result in very low fertility rates. These forces are most evident in the countries of Southern Europe and East Asia. Accordingly, the project will conduct semi-structured in-depth interviews of urban men and women age 25-34 in Spain and Japan, two countries that respectively represent these regions, and in the U.S. as a comparison case. The principal hypotheses are: 1) the young men most likely to postpone marriage and childbearing will be those who are experiencing economic distress (unstable employment or unemployment) while simultaneously holding highly conservative conceptions of family and gender roles; 2) the young women most likely to postpone marriage and childbearing will be those who are experiencing relative success in the labor market but who hold highly conservative conceptions of women's proper role in the family; and 3) these forces will be present to a much larger degree in Spain and Japan than in the U.S.

Broader Impacts

This project will generate a rich understanding of young people's marriage and fertility aspirations and the barriers they perceive to attaining these goals in two societies experiencing very low fertility (Spain and Japan) and one society maintaining moderate fertility. The project will provide deeper knowledge than existing studies of low fertility based entirely on survey data. The knowledge generated by the project will be disseminated to policymakers in low-fertility postindustrial societies to inform public policies to facilitate family formation.